Particle Surface Interactions and Their Modeling in Particulate Flows

It is proposed a combined experimental and computational study of particle-wall interaction in two-phase gas-solid flow. The experimental work will be conducted in a wind tunnel in which the velocity, particle concentration, target orientation and temperature and controlled. The impact and rebound particle velocity will be measured for different particle-target material combinations. The frequency of occurrence of a rebound velocity as a function of the impact velocity and impact conditions will be analyzed and compared to a probabilistic model. This is an interdisciplinary project, with aspects related to fluid mechanics, materials, computer simulation and laser measurements. The project is expected to make a useful contribution to particle-wall interaction modeling and erosion prediction in gas-solid particle flow, with application to turbines, compressors, combustion chambers and different chemical processes.